Seminar on Stochastic Processes, 2000

9979209
Khoshnevisan
The 2000 Seminar on Stochastic Processes will be held at the University of Utah from March 16 to 18, 2000. The seminars have become one of the most important regular seminar series for probabilists. They attract and bring together an active group of eminent researchers and young specialists in probability and stochastic processes. This award will provide travel support for participants. The funds will be used primarily for women and junior researchers.